CISE Postdoctoral Research Associateships in Experimental Computer Science - Verifying Implementations of Model Checking Algorithms

EIA-0072761
Launchbury, John
Oregon Graduate Institute

CISE Postdoctoral Associates in Experimental Computer Science: Verifying
Implementations of Model Checking Algorithms

Model checkers are starting to have a profound impact on the design of
computer systems, both hardware and software. They have demonstrated an
ability not only of discovering deep bugs in systems that traditional
testing methods could not discover, but also of demonstrating the
correctness of designs and implementations. However, in order to be
increasingly effective, model checkers have been increasing in complexity,
and now are themselves becoming susceptible to buggy implementations, and
hence contain serious soundness defects. The postdoctoral associate will
develop methods for ensuring that complex implementations of model checkers
are sound, and hence able to be used with confidence. He or she will
analyze the key implementation techniques that underlie modern model
checking algorithms, such as those used to implement Binary Decision
Diagram (BDD) algorithms, and develop a formal (machine-checked) theory of
these implementation strategies. The theory will be used to verify the
correctness of the corresponding BDD algorithms.